NSFNet Connection for John F. Kennedy University

9417380 Patterson This project connects John F. Kennedy University to the Internet over a 56,000 bits per second line. Faculty and students at the school's two campuses benefit from access ot the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for one year.